A New Approach for Detrmining Design Soil parameters from In-Situ Tests

This is a joint research effort between Clemson University (Dr. Juang) and University of Washington (Dr. Holtz) to develop a new procedure for an "intelligent" and systematic processing of geotechnical information generated from in situ tests for determination of design parameters. Methods developed in Artificial Intelligence and Operations Research, knowledge-based systems, and fuzzy set theory will be utilized for dealing with incomplete and uncertain data and information